Improvement in Geophysics Curricula: Acquisition of a Multichannel Seismograph

The addition of a multichannel seismograph to the Department of Geological Sciences allows undergraduate students to acquire high quality, high resolution seismic reflection and refraction data. Subsequent data reduction and analysis gives students the ability to determine subsurface earth structure. The resulting high resolution subsurface images are used in water resource,